Instrumentation for Undergraduate Field Experiences in Geophysics

Through this project, three portable seismometers and seismographs are purchased to enhance the teaching program in geology and geophysics. The equipment is used in three different undergraduate geophysics course: Field Geophysics, where emphasis is on planning and executing a seismic experiment; Applied Geophysics, where emphasis is on geotechnical applications of earthquake seismology; and Geophysics and Tectonics, where the major application is seismotectonics. This project involves 50-100 students per year from a wide variety of disciplines (geology, geophysics, environmental studies, engineering, physics, archeology). In addition, the equipment is used in classroom demonstrations and discussions in the beginning introductory classes in geoscience, which currently enroll 3000 students per year.